Study of Deformation Bands and their Role in Microstructural Evolution

9814768
Starke

The objective of this research is to advance microstructural continuum modeling through an experimental analysis of regular deformation bands. The results are used in modeling of deformation structures. A goal is a simple predictive theory for the conditions of deformation band initiation, growth and subsequent effect on mechanical behavior and microstructural evolution. A primary output should be macroscopic codes required in computer simulations of evolving deformation microstructures and textures during thermomechanical processing. Variables related to deformation band formation that are examined include the metal alloys, slip mode, grain size, temperature, strain and strain rate. The alloys selected for the study are an aluminum-copper binary, an aluminum-magnesium binary and an aluminum-copper-silicon ternary. These are selected to provide variation in slip behavior and precipitate structure.
%%%
These codes should impact the development of processing maps of metallic alloys thereby reducing alloy development costs and application times. Better understanding of aluminum alloys will impact their application to the new generation of transportation vehicles.
***